Terrestrial Age Constraints for the Dicynodon Assemblage Zone, South Africa: Implications for the Timing of the End-Permian Mass Extinction

Terrestrial Age Constraints for the Dicynodon Assemblage Zone, South Africa: Implications for the
Timing of the End-Permian Mass Extinction
Robert A. Gastaldo
Colby College

Deep time records provide evidence for changes in biodiversity and ecosystem
disruption and recovery, and act as models for understanding the potential changes now
recognized affecting Earth. The End Permian Mass Extinction Event is reported to have
impacted more than 90% of life in the oceans and up to 80% of life on land, with the
collapse occurring simultaneously at 252.2±0.2 million years ago. Recent work of the PI
and collaborators demonstrates that the paleontological records from the Karoo Basin,
South Africa, on which the idea of sudden collapse on land is based, can not be used to
identify a distinct event. Rather, criteria used to assign an end-Permian age to the biological
patterns are inaccurate based on field relationships. The most reliable way to identify the
timing of this event is by using chronometric techniques based on radiometric dating of
single crystal zircons from volcanic ash deposits. To date, this has not been possible
because it was believed that such deposits didn’t exist near the boundary.
A fossilized forest litter, located 70 m below the level where the extinction event is
reported, is buried and preserved by volcanic ash deposits in Wapadsberg Pass, Eastern
Cape Province. A pilot study of single crystal zircons analyzed by isotope dilution thermal
ionization mass spectrometry (ID-TIMS) using the ET535 tracer (spike) solution, distributed by
the EARTHTIME initiative, resulted in a suite of ages indicating a detrital source for the
zircons. Ages range from the NeoProterozoic (1038.78 ± 1.42 to 606.76 ± 1.0 Ma [3 grains]) to
the early Mesozoic (252.0 ± 0.5 to 251.8 ± .038 Ma [3 grains]). The project goals include the
acquisition of a larger suite of detrital zircon from several stratigraphic horizons in
Wapadsberg Pass and elsewhere that will be age dated. These will be correlated with
changes in sedimentary environments in the collection sites to place an age constraint on
the biodiversity trends identified in the Karoo Basin. The project tests the hypothesis that
the “Mother” of all Mass Extinctions was a phenomenon restricted to the oceans, and
changes in biodiversity trends on land were decoupled from those documented elsewhere.
If turnover in continental biodiversity did not happen simultaneously with the patterns
identified in the oceans, a new model for the greatest mass extinction in Earth history will
have to be developed.